Directed Mutagenesis of a Photosystem II Extrinsic Protein

9314743 Yocum Photosystem II is a complex enzyme system that harvests light and uses this energy for a series of reactions, one of which is the oxidation of H2O to O2. A cluster of hydrophobic membrane proteins provide ligation sites for the inorganic cofactors (Ca2+, C1, Mn) required for minimal levels of O2 evolution activity. However, stable ligation of these cofactors and kinetically efficient H2O oxidation minimally requires the presence of an extrinsic 33 kDa polypeptide known as the Manganese Stabilizing Protein, or MSP. A critical function of this protein in vivo and in purified photosystem II preparations is to confer stability to the site that ligates the Mn atoms that catalyze oxidation of H2O. Although one site of binding to photosystem has been identified for MSP, the protein's mode of action, whether purely structural or in addition as a possible contributor of metal ligands, remaining unsettled. The question of MSP function in photosystem II will be addressed by site-directed mutagenesis. Expression of mutagenized MSP in E. coli will be used to obtain amounts of protein sufficient for reconstitution, structural and spectroscopic investigations in a system using purified photosystem II preparations from Arabidopsis and spinach. Residues targeted for mutagenesis have been selected on the basis of their possible contributions to the tertiary structure of the protein or to binding of MSP to photosystem II. Analyses of reconstituted preparations are designed so as to reveal modifications in inorganic ion cofactor binding, alterations in the structure of the manganese cluster that catalyzes H2O oxidation, and defects in the ability of preparations reconstituted with mutagenized MSP to bind other extrinsic proteins that area also essential for long-term sustained activity under physiological conditions. The proposed experiments will provide a better understanding of the structure of an important photosynthetic protein and its contributions t o both the organization and catalytic function of the site of photosynthetic O2 evolution. %%% Photosynthesis produces the oxygen that sustains life on earth. The enzyme that carries out this process is called photosystem II, and is found in all plants and algae. Although, it is known that certain ions (manganese, calcium and chloride) are needed for oxygen production to occur, the role of photosystem II proteins in oxygen production is not well understood. This project will examine a photosystem II protein, called the Manganese Stabilizing Protein, that is essential to oxygen production, if it is removed, oxygen production is impaired and exposure to light begins to destroy the enzyme. To examine how Manganese Stabilizing Protein protects photosystem II and enhances oxygen production, the genetic code for the protein is first transferred to a bacterium, E. coli, which can be induced to produce the native protein or alternative versions containing mutations in large amounts. Once isolated, these protein will be examines for mutation-induced changes in their structure and, when they are added back to photosystem II, for changes in their ability to affect the activity and stability of oxygen production. The method to be employed permits the investigator to produce many mutations in the protein. By systematic modifications, it will be will be possible to determine which parts of the protein are important in stabilizing photosystem II, and which parts of the protein are involved in promoting the chemical reactions that produce oxygen. Although these experiments are directed at understanding a very fundamental biological reaction, they also will provide new information that may prove useful in 2 areas: first, when the mechanism by which model plant system such as Arabidopsis and spinach produce oxygen is fully understood, this knowledge may point the way to new chemical methods for carrying out oxidation/reduction reactions that are at present very energy-inte nsive. Second, determination of protein features that are required for efficient oxygen production can provide information on methods that may prove useful in protecting plant life from environmental factors such as global warming. ***